U.S.-Germany Cooperative Research on Efficient Data Structures for Computer-Aided Design

This award supports Professors Gary Hachtel and Fabio Somenzi, and a graduate student, all from the University of Colorado, to collaborate in computer science research with Professor Christoph Meinel and others of the Department of Computer Science and Complexity Theory and VLSI-Design of the University of Trier, Germany. They are working in the area of computer-aided circuit design, focusing on the synthesis and verification of digital systems using `binary decision diagram` data structures. Together they will explore new classes of these efficient data structures and their behaviors in specific applications. Previous work by the group at Trier on Ordered Binary Decision Diagrams (OBDDs) has focused primarily on the theoretical foundations and the connection with complexity theory. The US group has been motivated by real problems of electrical engineering such as sequential circuit verification, optimization and testing. The plan for collaboration will transfer and combine the complementary knowledge and experience of the two groups. The resulting synergism should result in contributions to both theoretical and practical aspects of circuit design.